MRI: Acquisition of a High Performance Computing Cluster for Research at a Predominantly Undergraduate Institution

This award is co-funded by EPSCoR program.
This MRI project is to acquire a computing resource (35 compute nodes each having 2, 8 core Intel Xeon processors, with two nodes having GPU accelerators) that will enable a number of interesting and carefully detailed research efforts at University of Central Oklahoma. Research includes projects on particle transport, stochastic modeling, ecological modeling, bio-informatics and spread of disease. A number of well-developed broadening participation activities in education and research are also proposed.
This project is leveraging the established network of 2- and 4-year colleges for collaborations and is facilitating integration of research and education through training opportunities for students and high school teachers.